A Regional Teacher In-Service Project in Meterology

This three-year teacher enhancement project will provide in- service science content and pedagogy instruction to 80 teachers from 40 middle and high schools. It will emphasize the use of meteorological observations to facilitate the development of scientific concepts and process skills which are relevant to students' everyday lives. Teachers will learn to use and maintain a network of computer linked weather stations for classroom instructions. The project includes academic year in-service courses, annual fall and spring conferences, annual three-week summer workshops and academic year classroom visits by professional meteorologists. The project begins with workshops for 30 teachers in the summer of 1990. Participants may earn six graduate credits from Portland State University for the summer workshops and (1-4) credits for the academic year work. Working scientists are ongoing participants and the resources of public and private schools are combined with those of the university, business community, and professional organizations and agencies. The cooperative pooling of human and fiscal resources from school districts, universities, the business community, professional organizations and other agencies, is a compelling feature of this project. Cost sharing in an amount of $460,219 equals 122% of the NSF award.